Lehigh Valley Mathematics Education Planning Grant

This planning grant will build a regional coalition to coordinate the mathematics in-service activities of several large and complicated systems. Working with local consortia of business, basic education, and higher education leaders working to achieve educational reform, the project director and senior staff will coordinate the mathematics teacher enhancement activities of these groups. The objectives include ascertaining 1) mathematics in-service needs, 2) equipment and technology needs, 3) the types of in-service materials needed, 4) the appropriate role of mathematics specialists, and 5) how to meet the needs of a growing population traditionally underrepresented in the mathematical sciences. Other objectives include summarizing the findings of relevant literature and research, and beginning work on a model mathematics curriculum and model school infrastructure. The project will culminate with the submission of a Teacher Enhancement Program proposal. To accomplish these objectives the proposers will form a national and a regional advisory board composed of leaders from the constituencies served by the grant activities. During the twelve months of the grant the project director and four senior staff members will meet weekly. The Regional Advisory Board will meet monthly, while the National Advisory Board will conduct business via the mail and telephone. Th grant activities will benefit all schools served by Intermediate Units model for cooperative efforts to improve mathematics instruction involving basic and higher education institutions, business and industry, government, teachers, and parents.